netILLINOIS - Illinois Research & Education Network

Bradley University with participation and support form major educational institutions and industry, and a strong working partnership with CICNet, the state of Illinois Central Management Services (CMS), and with considerable networking experience within its member shop, is prepared to develop the necessary technical and organizational infrastructure to establish and operate this network known as netIllinois. This network with its connection to regional and national networks, will support partnerships, consortia, and multi- disciplinary research activities; it will also enable statewide access t computing resources, databases, library information electronic mail and messaging capabilities. Specific emphasis will be given to Illinois-based information resources and research opportunities. The educational institutions that will participate include: Western Illinois Univ., Eastern Illinois Univ., Governors State Univ., Northeastern Illinois Univ., Chicago State Univ., Wheaton College, Illinois Benedictine Col., Olivet Nazarine Col., Elmhurst Col., College of DuPage, and Illinois Valley Community College. The network will provide a consistent statewide architecture for NSFNET access for a broad variety of entities engaged in education and research. This cooperative network will provide gateways to regional, national, and international networks and will be consistent with their standards. It will further the institutions' work in enhancing the state's economic development through a well-educated workforce, accessible training opportunities, and research and development partnerships. Another goal of the network is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state.***